U.S. Germany Cooperative Research: Elucidation of the Mechanism of Detoxification of Metolachlor: Differential Degradation and Transport of Enantiomers

0089747
Aga
This award supports Diane Aga and students from the University of Nebraska-Kearney in a collaboration with Rudolf Schneider of the Department of Agricultural Chemistry at the University of Bonn, Germany. The project is coordinated with the PI's existing CAREER award from the Chemistry Division and will focus on the role of stereochemistry in the degradation of metolachlor, a commonly used herbicide in Europe and the U.S. This is a highly complementary collaboration because the PI brings analytical strength and soil-science expertise while Dr. Schneider has expertise in plant metabolism and can provide actual plant-grown test samples. The project also fosters education and training of junior researchers by providing them international experience early in their careers.